Regulation of Coronatine Biosynthesis in Pseudomonas Syringae

9316488 Bender The phytotoxin coronatine is an important virulence factor in several plant disease caused by the phytopathogenic bacterium, Pseudomonas syringae. Fundamental to understanding the molecular basis of pathogenicity is to determine how virulence factors are modulated. Furthermore, the organization and function of genes required for biosynthesis of bacterial phytotoxins has not been intensively studied. A long-term goal of this research is to elucidate mechanisms that regulate coronatine production in P. syringae. Coronatine has a unique structure derived from two unrelated biosynthetic pathways: coronafacic acid (CFA) is of polyketide origin, whereas coronamic acid (CMA), is an ethylcyclopropyl amino acid derived from isoleucine. These two components are substrate feeding studies and complementation analyses have been used to identify regions of the coronatine biosynthetic cluster required for CFA and CMA production and the coupling (cpl) gene which catalyze amide bond formation. In this work, Northern blot analyses and transcriptional fusions will be utilized to elucidate the transcriptional organization and regulation of the coronatine biosynthetic cluster. The nature of the cpl promoter and factors which regulated the cpl transcript will be identified using primer extension, deletion analysis and gene fusions. The protein product of cpl will be overproduced and used to study its enzymatic activity in vitro. The results will significantly enhance our understanding of the regulatory controls and biosynthetic mechanisms employed in phytotoxin production. This work is part of an international collaborative effort to understand the mode of action, biosynthesis, and regulation or coronatine production in P. syringae. %%% This research will aid in our understanding of how some bacteria are able to infect plants while others cannot. ***